REU Site: SURFing the Materials Science and Engineering Lab: A NIST-NSF Partnership

9732098 Vanderah The National Institute of Standards and Technology (NIST.) will establish a Research Experience for Undergraduates (REU) site in its Materials Science and Engineering Laboratory. Students will be recruited from across the country, a special target will be members of underrepresented groups in science and engineering. Students will participate in a wide range of research in the areas of ceramics, solid state chemistry, metallurgy, polymers, neutron condensed matter science, and materials reliability. In addition, students will attend a weekly seminar by scientists and by previous REU participants, and a number of social activities. %%% The REU students will have access to exceptional instrumentation and facilities at NIST. The experience also includes an early and valuable exposure to the interdisciplinary research environment of a national laboratory. ***